FASEB Summer Conference: Folate, B-12 and One Carbon Metabolism July 30 - August 3, 1990.

This summer FASEB conference on Folate, Vitamin B12 and One- Carbon Metabolism is held every two years; this year it will be held at Saxtons River on 7/29 - 8/3/90. There have been exciting new developments in each of the nine areas to be discussed at the conference. Previously unrecognized roles of folates and folate analogs have been delineated, as have previously unrecognized roles for non-cobalamin corrinoids, cobalomins and particular intermediates in one carbon metabolism. New discoveries in intermediary one carbon metabolism in anaerobes, particularly steps involving folate and B12, have altered the field. New knowledge has emerged on the nature of the involvement of folate and corrinoids in the integrity of the nervous system; on the role of vitamin transport, delivery, and storage proteins in mediating folate and cobalamin metabolism; and on the roles of these vitamins in mediating the production of their delivery proteins and receptor proteins. Cloning of the genes for these proteins is playing an important role.